U.S.-France Cooperative Research: Non-Equilibrium Dynamics of the Quark-Gluon Plasma and Chiral Phase Transitions

9815064
Boyanovsky

This two-year award in support of U.S.-France collaborative research in theoretical physics involves Daniel Boyanovsky of the University of Pittsburgh and H. J. de Vega at the Laboratoire de Physique Theorique et Haute Energies, Universite de Paris VI and VII. They propose to study potential experimental signatures associated with nonequilibrium processes in quark-gluon plasma and chiral phase transitions. The project is related to the new generation of ultrarelativistic heavy ion colliders, the Large Hadron Collider at CERN and the Relativistic Heavy Ion Collider at Brookhaven. These experimental facilities will provide an unprecedented range of energy densities to probe the quark-gluon plasma and chiral phase transitions. The proposal takes advantage of complementary expertise of the US and French investigators in nuclear physics theory. Their project provides theoretical underpinning for proposed experiments at CERN and Brookhaven.